Undergraduate Electromagnetics Laboratory With Computer Control

Equipment is acquired, set up, and programmed to introduce an industrial quality laboratory experience to students in the core course on electromagnetism. Three stations (plus a utility station) are used for the conduct of measurements in the three areas: optics, microwaves (frequency domain), and transient response. All experiments are under computer control, and the students are responsible for some of the programming, starting with a basic core set of programs. Students in the core course are required to carry out four prescribed investigations plus one of their own design. At the end of the course, they should be comfortable with computer control of instruments, and with some fundamental properties of electromagnetic signals in time and frequency domain. The principal equipment consists of: (1) optical components, detectors, motion controllers, and fibers; (2) microwave network analyzer, and (3) time-domain reflectometer. Computer controls are used for all stations.